Research Experiences for Undergraduates in Aquatic Biology

This award provides funds to the Department of Biology at the State University College at Buffalo to establish a research experiences SITE in aquatic biology for 8 undergraduate students during the summer 1990. A particular effort will be made to recruit minorities and women. Each student will be matched with one of several participating faculty members and will conduct an 8-week project in one of the following areas: effects of UV-B radiation on metabolism of Cyanobacteria (blue-green algae); effects of a planktonic predator on zooplankton communities; survey of bacteria that are pathogenic to fish in fish, water, and sediments in polluted waters; occurrence of fish parasites in polluted environments; and determination of habitat preferences in Lake Erie fishes. Experience will be obtained in field sampling as well as in laboratory investigations. Research skills will be developed through a series of planned seminars and through interactions with faculty mentors. Students will present the results of their research in final written reports and orally in a concluding symposium.